Bio-Chemistry Discovery Lab

9814954
WEISS

The New York Hall of Science will develop, test, and implement the "Biochemistry Discovery Lab," a 1000-sq.-ft. space designed to complement the content and design of "The Chemistry of Living Things," a 3000-sq.-ft. exhibition that will be opening in 1999. The Biochemistry Discovery Lab will engage visitors in four different types of activities: 1) guided experiments for scheduled groups, 2) self-guided experiments, 3) demonstrations, and 4) the prototyping of ancillary materials. These activities are intended to engage the target audiences -- families, students, and the general public -- in experiences leading to an understanding that chemical reactions are due to the interaction of molecules; that chemical reactions occur in both living and nonliving things; and that there are visible and measurable characteristics of chemical reactions in living and nonliving systems.